U.S.-Germany Cooperative Research: Restoration Ecology of the Elbe River and Its Floodplain Forests

9901214
Adams
This award supports Michael Adams and a graduate student from the University of Wisconsin-Madison in a collaboration with H. Kausch of the Institute for Hydrobiology and Fisheries Sciences at the University of Hamburg, Germany. The research will focus on ecological changes in the river Elbe since the reunification of Germany. The dramatic, on-going changes in eastern Germany (industrial development in the post-reunification era) are having important effects on the Elbe River, the major river of the region. A second component of the research will be to study the river floodplain forest ecology in the stretches of the Elbe near Dessau in the former East Germany. That region of the floodplain contains the most important and well-preserved remnant of old-growth floodplain forests in central Europe. The collaboration of the German partners is indispensable to the collection and interpretation of the data. The research will be the subject of the graduate student's doctoral dissertation.